Light Regulation of Carbon Partitioning and Growth of Eelgrass

Seagrasses are distributed along the margins of all but the most polar seas and form the basis of some of the most productive plant communities in the world. They play important ecological roles in nutrient cycling, sediment deposition and binding, provision of habitat for a large and diverse fauna, and contribute significantly to nearshore food webs. Eelgrass, Zostera marina, is found typically in monotypic stands in nearshore waters characterized by light limitation and the presence of anoxic, organic-rich sediments. The very nature of eelgrass habitats imposes diurnal and often prolonged hypoxia/anoxia on subterranean tissues and severe restrictions on carbon gain. The ability of eelgrass to withstand and recover from these conditions must underlie its ecological success. Ongoing studies have begun to examine the physiological and biochemical mechanisms responsible for the success of eelgrass in these habitats. This research project will build on prior research and advance current understanding, beyond a simple accounting of whole plant carbon budgets, to the biochemical and molecular features that dictate integrated plant responses to submarine light environments and anoxic sediments. This research will address the fundamental mechanisms by which submarine light regimes control the survival depth, growth and productivity of Zostera marina, and elucidate the primary physiological, biochemical and molecular features of this species that ensure its ecological success in littoral environments. In particular, this project will investigate the controls on carbon partitioning between shoots and roots in Zostera marina, and initiate molecular examinations to determine the relative importance of translational and transcription events in regulating root responses to diurnal and prolonged anoxia. This project should provide the needed mechanistic understanding of the major factors that control the distribution and carbon allocation strategies of eelgrass, so that this level of sophistication can be incorporated into a predictive numerical model of growth and productivity for this species. The knowledge gained form these studies will not only advance our understanding of factors that control marine benthic productivity and contribute to our basic understanding of the adaptive mechanisms that function in plants, but provide information essential to sound and informed management of submerged macrophytes.